Eleventh International Conference on the Application of Accelerators in Research and Industry; Denton, Texas; November 5-8, 1990 (Physics)

The eleventh International Conference on the Application of Accelerators in Research and Industry is to take place in Denton, Texas, November 5, 6, 7, and 8, 1990. The purpose is to review current research and the wealth of industrial applications that are in progress with accelerators throughout the world. It provides a unique forum for scientific and industrial users, instrumentation designers, and accelerator technologists.